Acquisition of a Laser Scanning Confocal Microscope for Research and Training in Biology and Neuroscience at Davidson College

This award supports the acquisition of a confocal microscope and imaging station that will significantly expand several lines of research in the Biology and Psychology research laboratories at Davidson College. Confocal microscopy will significantly extend the research capabilities by allowing labs to generate high-resolution images that will contribute new knowledge at genetic, molecular, cellular, and behavioral levels. Specifically, faculty and students in five laboratories will examine questions of how developing neurons obtain their characteristic shapes; how cells sort and move proteins; how mitochondria form; how damaged neurons can sprout new connections; and how proteins are altered in ethanol resistant viruses. In addition, a confocal microscopy facility will also significantly enhance the training of future scientists. Science faculty actively involve undergraduate students in all aspects of the research process, therefore, undergraduates will learn theory and practice of confocal microscopy, which is a standard and widely used technique. Students will acquire contemporary microscopy and imaging skills, and experience the process and excitement of scientific inquiry first-hand. The ability to make original contributions to the scientific literature will better train students for careers in engineering and the life sciences.